Macroscopic Quantum Phenomena and Charge Fluctuations in Submicron Superconductor Devices

Experiments will be carried out by Professor Van Harlingen to determine noise sources in ultrasmall area tunnel junctions and macroscopic quantum dynamics in Josephson superconductor devices. Superconductor devices have served important functions as sensitive detectors and amplifiers for research. Equally important, superconductor devices and thin film structures have proven to be valuable test systems for studying a wide range of important physical phenomena in condensed matter systems including quantum effects, localization, non-linear dynamics, chaos, phase transitions, and fluctuations. Two problems in particular will be studied, discreet charge trapping fluctuations, which are a major source of low frequency noise and will allow investigation of the kinetics and interactions of localized defect traps in amorphous materials, and quantum dynamics of macroscopic systems, which study will encompass the effect of dissipation on the evolution of quantum states and the validity of quantum mechanics and quantum measurement theory to complex physical systems.